Minority Graduate Assistantship in Chemistry for Adam A. Profit

Adam A. Profit has been awarded a Minority Graduate Assistantship in Chemistry. The Minority Graduate Assistantships in Chemistry are viewed as an infrastructural investment designed to broaden the participation, knowledge, and experience of students who are members of minority groups underrepresented in Chemistry, and attract them into meaningful careers in chemical research and teaching. %%% Mr. Profit has a B.S. degree from Lehman College of the City University of New York. He has been admitted into the Ph.D. program at The State University of New York - Stonybrook. He is interested in specializing in Organic Chemistry.